SBIR Phase I: Ammonia and Syngas Impurity Tolerance for High Temperature - Proton Exchange Membrane (HT-PEM) Fuel Cells

The broader impact/commercial potential of this Small Business Innovation Research Phase I project is the development of a fuel-flexible, high-temperature proton exchange membrane (HT-PEM) fuel cell that can operate on two carbon-free fuels: ammonia and syngas, both produced from waste biomass. The fuel-flexible HT-PEM fuel cell is uniquely suited for rapid adoption as a complete system that can run on a variety of fuels with only minor modifications to its fuel reformer design. The initial market for this technology is small to mid-sized unmanned aerial vehicles (UAVs), and these were valued at $1.1 billion in 2020 (expected to grow 240% by 2029). Due to the stringent weight and durability requirements in the UAV market, adoption of this technology in mobile and stationary power applications including backup power, marine power, and remote power generation is anticipated. Investigation of these fuel/technology combinations have not been widely researched and will contribute to the displacement of fossil fuel combustion technologies, lead to increased economic competitiveness of the United States, and support the national defense.

The intellectual merit of this project stems from the HT-PEM fuel cells' ability to run on a diverse set of upfront fuel sources with only minor modification of the final assembled system, while still providing the key attributes required in most applications. For widespread adoption of new electricity generating devices, remaining fuel agnostic is a key technological trait, as proven by the enduring success of the internal combustion engine. The HT-PEM fuel cell can serve as a similar core technology, contributing to the global transition from fossil fuels. Nevertheless, there exists minimal research when operating a HT-PEM fuel cell on reformed ammonia and syngas generated from waste biomass, two popular renewable fuels expected to be widely used during this transition. The key question for this research is: what is the maximum concentration of impurities commonly found in reformed ammonia and syngas that will still allow a HT-PEM fuel cell to be technically and commercially viable? The key objectives are to outline the HT-PEM fuel cell performance while operating on ever increasing contaminant levels and identify the stop-loss mechanisms.